Postdoctoral Fellowship: MSPRF: Non-Positively Curved Aspects of Artin Groups and Related Families

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Katherine Goldman is “Non-Positively Curved Aspects of Artin Groups and Related Families”. The host institution for the fellowship is McGill University and the sponsoring scientist is Piotr Przytycki.